Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Statistics at the University of Michigan
will purchase computing equipment which will be dedicated
to the support of research in the mathematical sciences.
The equipment will be used for computational and
visualization aspects of the research in the following
projects: 1) Functional Data Analysis for Modeling Human
Motion; 2) Spatial Modeling with Applications to Integrated
Circuit Fabrication and Reconstruction of Color Images;
3) Bioinformatics; 4) Inference in Dynamic Treatment
Regimes; and 5) Design of Experiments. The high-speed
equipment will consist of a 16-node Linux cluster connected
with a high-throughput Ethernet switch and two high-end
workstations with advanced graphics capabilities.